CAREER: Integrated Study of Conformal-Contact Elements

9701642 Wang A CAREER award supports studies of heavily loaded conformal contact tribological machine elements. An integrated theoretical-numerical-experimental approach will be used with emphasis on the mixed lubrication and boundary lubrications regimes and on failure transitions. The ultimate goal is to develop accurate models of performance in conformal contacts for use in design of advanced machine elements of this type. The educational component of the award focusses on stimulating the student's creativity and self-motivated activities by integrating fundamentals, design, and career development. ***